Interdisciplinary Workshop on Epikarst

0309596
Hess
The Interdisciplinary Conference on Epikarst to be held in early October,
2003 in Shepherdstown, West Virginia, will sponsored by the Karst Waters
Institute. Epikarst is the boundary between soil and rock in karst,
honeycombed with small fractures and solution pockets that may or may not be
filled with water. The secondary porosity of this zone and its complex role
in contaminant transport, especially of NAPL's have increased interest in
epikarst. While karst scientists from different disciplines recognize its
importance, our ignorance of the epikarst is nearly complete! We will bring
together karst scientists and scientists from other disciplines whose
participation may shed light on this enigmatic zone. There will be a
relatively small number of formal presentations, followed by a lengthy
discussion. The discussion will be transcribed and become part of the
conference proceedings. Topics include defining epikarst, hydrology and
contaminant transport, economic impacts, soils, fauna, and ecology of
epikarst.